Ontological Specification of Interoperability Semantics for Financial Information Systems

This project supports a workshop to bring together:

a) computer scientists working on formal semantics methods,
e.g., ontologies, knowledge representation languages

b) accounting and accounting information systems faculty,

c) developers of standards for financial reporting systems,
such as XBRL, UN CEFACT, SDMX, ...

d) government statisticians working on the generation of
economic statistics

e) staff from government financial and securities
regulatory agencies

to consider research issues and the potential utility
and impact of formal semantics methods (e.g., ontologies,
knowledge representation languages, description logic, etc.)
for the specification of financial reporting systems
and standards for financial information (reporting)
systems.

Intellectual Merit
----------------------

Financial reporting systems consist of financial transaction systems
(e.g., general ledger), classification schemes (notably charts of
accounts), and aggregation mechanisms (e.g., summing all of the
transactions for particular accounts).

Historic practice in the specification of financial information
system standards is to specify the semantics via natural language
texts. The PI and others believe that this is
inadequate to assure reliable semantic interoperability among
the various accounting standards and systems.

This workshop is the first to bring together researchers from
the formal semantics / KR / ontology communities and the accounting
community. It is to explore the prospects for interaction of these
two communities and write a report with a research agenda for
work in this interdisciplinary area of formal semantic specification
of financial information systems and the implications for
interoperatibility of these financial reporting systems.

Broader impacts:

Financial information systems are an essential component in
the management of large organizations - business, government,
and nonprofits. They are an essential component of the
securities and banking industries, securities and banking regulatory
agencies and operation of taxation systems.
Financial reporting systems are also the basis from which
economic statistics, such as national income statistics and
trade statistics are generated. Improvements in the semantic
specification of these financial information systems will
facilitate the automation of the financial reporting chain,
and improve the reliability of interoperability and integration
of such financial reporting systems within businesses, and between
businesses and regulatory and taxation agencies.

Finally, the adoption of formal semantic specifications for
financial reporting systems will entail substantial changes in the
training of accounting information system professionals.

Project web page: http://www.msu.edu/user/mccarth4/NSFontology/